AtIR: An Arabidopsis thaliana Information Resource

This project is to develop a new database, designated AtIR, that will provide public electronic access to all public information pertaining to, and derived from, the Arabidopsis genome project. AtIR will be the next generation of a product formerly known as AtDB. The stated goal of the project is to facilitate utilization by the scientific community of the genomic resources available in Arabidopsis. The design anticipates the completion of the Arabidopsis genome sequence, widespread use of high density DNA microarrays for studies of gene expression and other emerging genetic technologies. In addition, relevant information from the approximately 9000 papers published on Arabidopsis will be entered into the database and associated with genome-related information. Because of the importance of Arabidopsis as a model for all higher plants, a fundamental design feature of AtIR will be ease of access by scientists who do not have a primary research interest in Arabidopsis. For similar reasons, the database design and implementation will attempt to maximize communication of AtIR with other databases. The database will be managed as a public resource by an executive committee with representatives from four institutions, and will be overseen by both advisory bodies and user focus groups.